International Travel Grant for Participants in DYCORD+ '95 (Helsingor, Denmark)

B. Wayne Bequette CTS-9520777 Rensselaer Polytechnique Institute Travel support is provided for up to 15 U.S. academic researchers to participate and present papers at the DYCORD+'95 meeting sponsored by the International Federation of Automatic Control (IFAC). IFAC is comprised of national organizations from various countries with the American Automatic Control Council being the U.S. representative. This is the fourth DYCORD conference and will be held in Helsingor, Denmark, 7-9 June 1995. Three main areas will be addressed: chemical reactors, distillation columns and batch processes. The Program Committee has international representation and the proceedings will be published and selected papers will be considered for publication in archival journals.